Pan American Studies Institutes: Modern Trends in Heat Transfer; San Luis Potosi, June 2000

9979293
Sen

This Pan American Advanced Institutes award, jointly supported by the NSF and the Department of Energy (DOE), will consist of a two-week course on modern trends in heat transfer. The course will be held in the summer of 2000 in San Luis Potosi, Mexico with instructors and graduate students from across the Americas. Eight prominent heat transfer researchers from Canada, the U.S., Mexico and Argentina have agreed to lecture, and the Universidad Autonoma de San Luis Potosi has agreed to host the course, provide the facilities, and make local arrangements. The contents of the course will include analytical, numerical and experimental aspects of natural-circulation loops, oscillatory convection, conjugate heat transfer processes, chaotic advection, two-phase heat transfer, gas-droplets flows, and artificial neural networks. The course will combine advanced graduate-level lectures with cutting-edge research seminars. It will involve extensive discussions in small and large groups as well as panel sessions to encourage interaction between faculty and students and lay the groundwork for future collaboration.
***